Mathematical Sciences: Diophantine Geometry and Differential Algebraic Geometry

9500331 Buium Professor Buium will work in arithmetic geometry specifically problems in Diophantine geometry. He will use techniques from differential algebraic geometry to study Lang's conjecture, the semi-abelian case of Mazur's conjecture as well as relationships between the abc conjecture and logarithmic Kodaira dimension. This project falls into the general area of arithmetic geometry - a subject that blends two of the oldest areas of mathematics: number theory and geometry. Professor Buium's research even includes a component coming from classical analysis. This combination has proved extraordinarily fruitful - having recently solved problems that withstood generations. Among its many consequences are new error correcting codes. Such codes are essential for both modern computers (hard disks) and compact disks.